Preparation of Elementary School Mathematics and Science Teachers

This project will develop a model for preparing science and mathematics teachers for elementary school. The model is comprehensive, beginning with the students' first preservice courses through the first years of teaching. Project faculty will develop courses that integrate content, learning theory, and teaching strategies. Field experience and student teaching will take place in the classroom of teachers whose philosophy and pedagogy are consistent with project goals. A support network to ease the transition time from preservice to inservice teaching will be developed among school administrators, university faculty, educational service personnel, lead and mentor teachers, and graduates of the project. This network will, at the same time, develop a broad base of support for the project goals. Such a network of committed people involving so many levels of our educational institutions will insure the continuation of the project goals. The project will have approximately 25% cost sharing from the institution.